Brainstorming Meeting on Ecology of Infectious Diseases

Meeting of international representatives to discuss research needs for the ecology of emerging infectious diseases. Given recent events and the possibility of pandemics, it is becoming increasingly apparent that a better understanding of the complex interactions of disease agents with wildlife, humnas, and the environment is imperative.